Acquisition of Networked Imaging Technology for Characterization & Visualization of Engineered Materials & Structures, Geostructures, & Transport Phenomena.

This award is to acquire a networked infrastructure of imaging equipment. The equipment will be used in interdisciplinary projects involving the Department of Engineering at the Colorado School of Mines. The primary use of the equipment is for visualization of 2 and 3 dimensional fields related to materials, structures, and flow phenomena. Civil, Mechanical, and Electrical Engineering will all benefit from this award. The proposed equipment will consist of high speed graphic processors with associated image capturing and processing equipment all networked together with high speed links.